Acquisition of New GPS Equipment for the UNAVCO Community Pool in Support of Current and Emerging Solid-Earth Sciences Research Applications

0214355
Johns

This grant supports a major upgrade to the NSF research community's Global Positioning System (GPS) receiver pool, critical for high-precision GPS campaign measurements to support Earth sciences related research. Thirty new generation GPS receivers will be purchased over three years, maintaining a state-of-the-art receiver pool that ensures the UNAVCO Facility's continued leadership in geodetic GPS technology for campaign applications. The new GPS receivers will benefit the research community with improved features including better data quality, reduced power consumption, smaller size, and increased memory. The main use of the UNAVCO equipment pool continues to be traditional millimeter-level precision crustal deformation GPS campaigns involving data collection for several days per survey point, and 24 new receivers are dedicated to such support. An additional six receivers with added capability will also support kinematic, rapid static, and real-time kinematic applications that require centimeter-level precision. As new equipment becomes available for pool use, the current pool receivers will be phased out of the pool and into NSF funded research projects for use in permanent GPS installations.
***